Workshop on Research Needs in Acoustics and Noise Control, Detroit, MI, June 30, 1986.

This award supports a conference which identifies new research needs and opportunities in the field of acoustics and noise control. Acoustics and noise control are important factors in improving a design or developing a technique to make a product more competitive. The workshop's objectives are to recommend important generic areas of acoustics and noise control research for the next decade, to identify and rank specific research problems within these generic areas, to identify acoustics funding activity in various federal agencies and industry, and to demonstrate the relevance and importance of these areas to the competitiveness of U.S. industry. The workshop is being organized under the auspices of the American Society of Mechanical Engineers and will be held in Detroit, MI, on June 30, 1986.